Connections between Space-Bounded Molecular Computation and Classical Complexity Theory

With its exponential parallelism, molecular computing offers the hope of solving important problems that have resisted solution on conventional computers. Various molecular operations have been proposed as feasible; because it is unclear which operations will be usefully implementable, algorithms that use the simplest operations are to be preferred. In particular, communication between processes may be impossible. Parallelism and running time are resources to be exploited efficiently. It is known that molecular computers with limited operations sets, polynomial time, and exponential parallelism can solve any problem in the class NP. By further limiting the parallelism, various bounded-nondeterminism subclasses of NP are obtained. This project investigates the relationships among molecular computation classes and these NP subclasses. While many molecular algorithms for important problems use 2n parallelism, this severely limits the size of problems that those algorithms can solve. In the last two decades there has been an improvement from 2n to 2cn for various c<1 in the running time of classical serial algorithms for important NP-complete problems like 3-SAT, graph coloring, and independent set. Using bounded nondeterminism as an algorithm design technique, this project will develop more efficient molecular algorithms for important NP-complete problems, such as 3-SAT, graph coloring, and independent set. ***